Proposal for Anthropoid Primate Growth Data Collection from the London Zoo

The Principal Investigator will travel to London for a week to xerox the clinical growth records of the primates at the London Zoo, which is closing. The records may well become unavailable or lost at that time. The proposers will to transfer the records to their primate growth data base and to analyze them within the framework of their continuing study of the development of sexual dimorphism in different primate species. This is a timely and important project. Sexual dimorphism is once again an interesting topic in evolutionary studies, and it is being tied to different mating strategies or alternatively, different diets. It is also clear that the development of sexual dimorphism (its timing during growth, etc.) is an important dynamic that has not been adequately addressed, where most often the focus has been on adult animals.